Collaborative Research: Conference: Great Lakes Mathematical Physics Meetings 2026-2027

This award supports participation in the Great Lakes Mathematical Physics Meetings (GLaMP), which take place June 5-7, 2026 at University of Dayton, and in June 2027 at Michigan State University. The annual conference series, which began in 2016 at Michigan State, focuses on early-career mathematicians working in mathematical physics. Each meeting features invited talks by experts in the field, a minicourse on a topic in mathematical physics, contributed talks by participants, and an interactive career development panel. The main goals of the GLaMP series are: 1) to provide a forum for early-career researchers in mathematical physics, including advanced undergraduates, graduate students, and postdoctoral scholars, to present their research and enhance their career development; 2) to maintain communication and collaboration among scientists working in mathematical physics throughout the United States and, in particular, in the greater Midwest; and 3) to raise the research profile of mathematical physics within the mathematical and scientific community of the United States.

Mathematical Physics is one of the oldest scientific disciplines and is a very active field worldwide, with researchers working in both mathematics and physics departments. The roots of the field can be traced to the classical mathematics of Newton, Euler, and Gauss. In the twentieth century, there were many developments at the boundary between mathematics and physics, for example, in scattering theory, non-relativistic quantum mechanics, constructive quantum field theory, the foundations of statistical mechanics, and applications of geometry and topology to high energy physics. The field is supported by the International Association of Mathematical Physics, which organizes an international congress every three years. Although there are many mathematical physicists working in the United States, there are few regular conferences representing the field in the US. The GLaMP meetings have evolved to be the main annual meetings focused on mathematical physics in the US. Minicourse topics have included non-equilibrium quantum statistical mechanics, disordered quantum spin chains and many-body localization, non-self-adjoint operators and quantum resonances, the mathematics of aperiodic order, random matrix theory and supersymmetry techniques, quantum trajectories, and mathematical general relativity. Besides the location, the distinguishing feature of the GLaMP meeting is its emphasis on early-career researchers. The majority of contributed talks are given by early-career faculty, postdocs, and advanced graduate students. In addition to providing a forum that showcases the work of young researchers, the GLaMP meeting also offers career development opportunities, specifically through a three-hour mini-course on an active area of research given by a world-class expert, and a career round table with panelists representing different career paths in mathematical physics, both in academia and in industry. Further information about the GLaMP meetings is available at https://sites.google.com/msu.edu/glamp/home.